Mathematical Sciences: Nonlinear Elliptic Equations and Systems from Geometry

9403629 Chen The research entails the study of existence and regularity of classes of partial differential equations arising from the variational principles derived from harmonic maps of Riemannian manifolds. The case of non-compact complete Riemannian manifolds will receive particular attention including those cases where conical singularities are present. The research has potential application to mathematical physics and liquid crystals in materials theory. ***